STTR Phase II: Integrated Water Quality Monitoring System

This Small Business Technology Transfer Research (STTR) Phase II project will develop optical sensors, called optrodes, and their systems for monitoring environmental water quality. Phase I research demonstrated the ability of optrodes to gather long-term environmental water quality data in harsh environments. Phase II technical issues are concerned with: (1) analyte specific probe chemistries; (2) optical coatings; and (3) optical configurations. With respect to systems, Phase I found lifetime phase-base measurement systems superior to traditional intensity-based systems. Phase II will develop an integrated phase-based analyzer capable of: (1) resolving dissolved oxygen, dissolved carbon dioxide, acidity, and temperature; and (2) transmission by remote data telemetry.

These innovations in optrode technology will: (1) improve mapping of geophysical fields; (2) substantially reduce direct labor costs associated with conventional monitoring technologies; (3) produce robust data for enhanced modeling capabilities; and (4) enable other technology for protecting natural resources.